Jeol Jem-1200EX Bio Transmission Electron Microscope

This proposal is to obtain a high resolution transmission electron microscope (JEOL JEM-1200EX-BIO) to replace a 20 year- old JEM-100B which is currently one of two standard transmission electron provided as "core facilities" to biological investigators at the University of California at San Diego (UCSD). These microscopes, along with facilities for specimen preparation, constitute the Laboratory for Neurocytology that is operated on a recharge basis in the School of Medicine at UCSD. There are over 20 research projects involving 12 established investigators currently dependent on the use of the electronmicroscopic facilities of the Laboratory for Neurocytology. The major user group consists of established scientists mainly from the School of Medicine with research interests in neurobiology. Other users from the general campus or the allied institutions also benefit from the special facilities for freeze-fracture, three-dimensional reconstruction, or cryosectioning, not available for use on a recharge basis elsewhere in this geographic area.